Doctoral Dissertation Research: Privatization, Restructuring, and Gender in the Post-Soviet Textile Industry

Kominiak, Tara Clark University The doctoral dissertation research will examine how the decentralization of economic control is restructuring gender relations in post-Soviet Russia. The privatization of state property has shifted decision-making authority from the national to the local level. An investigation of the connections among forms of restructuring and their implications for workers in the female dominated textile industry will be studied. The research will emphasize the importance of the decentralization of control in shaping development outcomes and social relations. A collective case study approach will be used to examine specific examples of privatization and restructuring in the textile industry. Four firms will be selected for intensive analysis. The research will provide new insights on the little studied area of liberalization and gender relations under the process of economic restructuring.